Universality and isotropy of velocity and scalars in turbulence: experimental tests and implications for subfilter-scale models

Abstract

In this renewal proposal, the PI proposes to continue his investigation of turbulent flow especially in terms of Large Eddy Simulation (LES) modeling. In order to obtain accurate LES modeling, transport in the small scales, sub-grid scale, of momentum as well as scalar quantities such as temperature and concentration need to be known. In this proposal, the PI will concentrate on the study of passive scalar dynamics in turbulence.
Experiments will be performed on heated cylinder wake, heated jet, and grid turbulence with temperature gradient to obtain the sub-grid scale transport of heat and momentum in these flows. Results of the experiments will used to formulate appropriate SGS modeling for application in LES.